2002 Floral Scent, Biology, Chemistry, and Evolution Conference; March 2002, Ventura, California

This application requests partial funding to support the Gordon Conference on the
Biology, Chemistry and Evolution of Floral Scent to be held March 3 to 8, 2002, at the
Ventura Harbortown Resort in Ventura, CA. The primary goal of this conference is to
bring together researchers investigating the emergent field of floral scent from diverse
disciplines and foster new interdisciplinary exchanges and collaborations that will
increase our understanding of the evolutionary significance and mechanisms of floral
fragrance emission.
The conference will consist of 4 formal sessions, each consisting of 6 oral presentations
(including 2 plenary talks by leading scientists in the area) and 4 afternoon poster
sessions. The sessions focus on the principal disciplinary areas that are at the forefront of
floral scent research and include the diverse fields of pollination ecology and systematics,
analytical chemistry and methodology, neurophysiology and ethology, and biochemistry
and genetic engineering. We have selected invited speakers on the basis of their current
activity in the field while also striving for a program that has a balance of gender,
includes peoples from different ethnicities and countries, and involves young promising
investigators.